Making Rapid Prototyping Viable for Remote Use on the National Information Infrastructure

This project is working to make rapid prototyping and reverse engineering facilities available over wide-area computer networks. It includes several research thrusts along with an integration effort to ensure that the facilities will be usable remotely with little on-site intervention. The project has four major thrusts: (1) development of algorithms for checking consistency of geometric descriptions; (2) development of new languages based on constructive solid geometry for communicating geometric descriptions; (3) connection of rapid prototyping equipment to a wide rear network, with device drivers and server software to allow remote access; (4) connection of a 3D scanner to the network for remote access.